Geochemistry and Molecular Microbiology of Travertine

0000501
Bonheyo

The causal relationships between microbial metabolism, water and carbonate chemistry, and potential DNA preservation in travertine fluid inclusions will be evaluated at Mammoth Hot Springs, Yellowstone National Park. Analyses will be done on a single modern spring (three 1 m2 stations from 40° - 75°C) and corresponding ancient deposits (100, 1000, 8,000, 25,000, and 45,000 years old). Creation of this aqueous-solid-microbial process model in the modern will quantitatively track the entombment and fossilization of microbial DNA.